Group Travel to the Advanced Study Institute on Techniques and Concepts of High Energy Physics; St. Croix, Virgin Islands; June 15-26, 1994

9314877 Ferbel This grant is for partial support of the 1994 Advanced Study Institute on Techniques and Concepts of High Energy Physics, the latest in a series of successful biennial institutes that date back to 1980. The purpose of the institute is to provide instruction on advanced technology in particle-physics experiments to a select group of young physicists at the level of recent Ph.D.'s or advanced Ph.D. students. The award covers their travel and incidental expenses in part. ***